The Influence of Substrates on the Kinetics of Cadmium Telluride Organmetallic Vapor-Phase Epitaxy

9319186 Sides This is an investigation of the kinetics of organometallic vapor- phase epitaxy (OMVPE) of homoepitaxial cadmium telluride at both the macroscopic and microscopic levels. Macroscopic experiments explore the effect of misorientation of substrates on the morphology of OMVPE-deposited material. Rate laws for step growth and for hillock growth are developed in order to test the hypothesis that steps are critical sites of reactions of the commonly used sources dimethlycadmium and diisopropyltellurium. A methodology will be developed to use rate laws to predict conditions under which high-quality epitaxial films can be grown. The effect of substrate surface microstructure on the elementary reactions in the deposition mechanism is also investigated. Scanning tunneling microscopy, low-energy electron diffraction, and other surface science techniques are employed. Thin films of cadmium telluride and related compounds are attractive for fabrication of devices involving light emitters, radiation detectors, and optical switching. At present, they are prepared by molecular beam epitaxy (MBE), a method that is slow, cumbersome, and expensive. Perfection of OMVPE techniques should permit higher-volume, lower-cost production of these films, making them acceptable for consumer applications. It is to this end that this effort is ultimately directed. ***